Diagnostic Instrumentation for Real-Time Inspection of Pavement Surface

This project will investigate the effectiveness of using a moire interferometer to image the cracked pattern of a pavement. This will be done by the use of a moving vehicle, data processed and an expert systems developed to analyze the data in order to form a decision on repair or replacement.